Research on Stochastic Optimization and Applications

Research on Stochastic Optimization and Applications

Hui Wang

Project Abstract

Many stochastic optimization problems assume that the decision
maker has the total freedom to intervene the system. That is,
the control policies can be adjusted continuously and
instantaneously, or the state processes can be stopped arbitrarily
within some time interval. However, this assumption is often
violated in practice. The first part of the project is concerned
with some new formulations for stochastic optimization problems
in order to accommodate these practical constraints. These models
share a common feature: random intervention times determined by
exogenous signal processes. In the context of optimal control,
the decision maker is allowed to adjust the level of control
only at times when an exogenous process gives him a green light;
for example, when an Poisson process makes a jump. In the area of
optimal stopping, the state process is allowed to be stopped only
at times when it receives certain signals from an exogenous process.
Both formulations admit explicit solutions and can be applied to
model practical constraints on control policies or stopping times.
The second part of the project is concerned with a class of diffusion
processes with jumps. The major effort is put on their applications
to economics and finance. The reason for the introduction of such
processes is that the classical diffusion model for stock prices
cannot explain many empirical puzzles. For example, an abnormality
called volatility smile is often observed in option pricing, and the
return distributions of financial assets exhibit a leptokurtic feature.
We intend to explain these phenomena, using the jump processes to model
stock prices in a financial market or the values of economic projects
in investment problems. The discontinuous behavior in the underlying
processes requires new techniques to obtain explicit solutions to
certain pricing and wealth optimization problems. The research project
includes pricing commonly traded exotic options, analysis of utility
maximization, and evaluation of investment projects.

Stochastic optimization is one of the main topics in modern applied
mathematics, with many applications in disciplines like engineering,
biology, economics and finance, etc. The purpose of this research
project is to systematically develop mathematical theories that are
more faithful to real life problems, so that the conclusions drawn
from them can be used with more confidence. For example, a better
understanding for the uncertainty of stock prices can help agents
reduce the risk in financial practice. However, in developing more
realistic models, one must be aware of the subtle balance between
complexity and mathematical tractability. A realistic yet too
complicated model can be mathematically untractable. The goal of
the project, therefore, is to develop analytically or numerically
solvable models that embrace the essence of the practical problems.
To this end, some new formulations are considered for general
stochastic optimization problems in order to accommodate some
practical constraints; for example, the controller can intervene
the system only at times when an exogenous process sends out a
certain signal. Also considered are some new models for
economics and finance that incorporate the drastic changes of
stock prices over short periods of time. These new models can be
used to explain many empirical puzzles that the classical models
fail to do, and to help agents develop better portfolios to reduce risk.